Physiology of Somatostatin

9406707 Sheridan It is well known that the pancreas produces hormones that regulate such critical processes as metabolism, development, and growth. The best known pancreatic hormones are insulin and glucagon. Recent studies have shown the existence of multiple forms of somatostatin, a peptide hormone originally isolated from the brain and found to inhibit growth hormone release from the pituitary gland, but subsequently found to be located in the pancreas, gastrointestinal tract, and elsewhere of many animals. The special significance of the multiple forms of somatostatin and the roles these factors play in coordinating aspects of metabolism, growth, and development remain to be determined. With this project, Dr. Sheridan will evaluate how somatostatin influences, directly and/or indirectly (via interactions with other pancreatic factors such as insulin), lipid metabolism in fish. Specifically, he will determine in what tissues and through what specific cellular processes somatostatin influences fat uptake and breakdown. In addition, he will distinguish the actions of two pancreatic somatostatin forms (the co- existence of which is unique to fish). These results will contribute significantly to the overall understanding of how metabolism is regulated and provide important insight into the evolution of somatostatin action. ***